Stochastic and Chaotic Phenomena in Physics

This grant supports basic theoretical research in the area of non-linear dynamics and stochastic processes. The main focus of the work will be to study the chaotic amplification of intrinsic noise in quantum systems using analytical as well as improved numerical techniques.